EAGER: Detecting and Addressing Adverse Dependencies Across Human-in-the-Loop In-Home Medical Apps

Millions of mobile applications (apps) are being developed in domains such as energy, health, security, and entertainment. The US FDA expects that there will be 500 million smart phone users downloading healthcare related apps by the end of 2015. Many of these apps will perform interventions to control human physiological parameters such as blood pressure and heart rate. The intervention aspects of the apps can cause dependency problems, e.g., multiple interventions of multiple apps can increase or decrease each other's effects, some of which can be harmful to the user. Detecting and resolving these dependencies are the main goals of this project. Success in this research can significantly improve the safety of home health care.

This project will develop EyePhy, a completely new approach to primary and secondary dependency analysis for wellness and mobile medical apps based on smart phones. The approach offers personalized dependency analysis and accounts for time dependent interventions such as time interval for which a drug or other intervention is effective. To do that, EyePhy uses a physiological simulator called HumMod which was developed by the medical community to model the complex interactions of the human physiology using over 7800 variables. Among the goals of EyePhy are the reduction of app developers' effort in specifying dependency metadata compared to state of the art solutions, offering personalized dependency analysis for the user, and identifying problems in real time, as medical app products are being used. Such dependency problems occur mainly because (i) each app is developed independently without knowing how other apps work and (ii) when an app performs an intervention to control its target parameters (e.g., blood pressure), it may affect other physiological parameters (e.g., kidney) without even knowing it. A priori proofs that individual cyber-physical systems (CPS) app devices are safe cannot guarantee how it will be used and with which other (future) apps it may be run concurrently. It is becoming more common for people to use multiple apps. The average person will not understand how multiple apps might affect his health due to hidden dependencies among a large number of parameters. Consequently, a tool such as EyPhy is critical to future deployments of safe mobile medical apps.